Quantum Phenomena in Solids

TECHNICAL SUMMARY:
This award supports theoretical research and education on quantum correlation phenomena in solids. The long-term goals are to develop new materials and structures with useful functionality not currently available, and to extend the basic scientific framework to understand matter in new regimes and new phases. The research thrusts span bulk materials and heterostructures. In the former, the PI will study (1) frustration and fluctuations, and their consequences and applications; (2) magneto-electric coupling; and (3) orbital fluctuations and ordering. In the heterostructure area, the PI will consider interfaces between correlated electron materials, which are becoming a very exciting subject experimentally. The PI aims to address key outstanding questions raised by experiments in quantum magnets, multiferroics, spin-orbit coupled materials, and more complex Mott insulators. The breadth of topics is an asset to this research program; by viewing one material or structure in a broader context, the PI aims to obtain insights into the relative importance of the very many effects that might be involved. The theoretical techniques — e.g. statistical mechanics, field theory, renormalization group, numerical methods, constraint counting — which will be used to study competing interactions and fluctuations are also widely applicable across all these problems.
Advances in the past 5 years in growing high quality atomic precision interfaces between transition metal oxides by pulsed laser deposition are remarkable. This is an extremely exciting new venue for correlation phenomena and also eventual applications building semiconductor-style heterostructures from correlated materials with their additional functionalities. The PI will carry out fundamental research aimed at elucidating the new physics occuring at these interfaces and how they differ from semiconductor heterostructures.
This award supports the education of graduate students and postdocs in forefront areas of condensed matter theory. New course materials will be developed to convey the excitement of the fields to new students.

NON-TECHNICAL SUMMARY:
This award supports theoretical research and education to motivate and explain experiments and properties of materials. The PI will focus on particular areas which he believes are those most likely to lead to revolutionary technological impacts. These areas also advance fundamental science.
Experiments reveal materials that have the necessary ingredients to become magnets, but do not exhibit magnetism. On the scale of atoms, there is a competition between the interactions that would favor aligning the fundamental building blocks of magnetism and the geometrical arrangements of the atoms. This frustrates the tendency to magnetic order. Experiments continue to deliver more examples, like the minerals Herbertsmithite and Volborthite, enabling the test of theoretical ideas that new states of matter will arise from failed magnetism. The PI will also study materials where electron charge and magnetism are closely coupled. Multiferroics are an example class of materials; they simultaneously exhibit magnetism and the electric charge analog of magnetism. The PI will also study phenomena that arise from the coupling of spin and charge in a new class of insulating materials, called topological insulators, that are rich with possibilities for new phenomena involving magnetism that arise from the motion of electrons. A recent experimental advance enables the joining of two different oxide materials, analogous to the interfaces between semiconductors that form the basis of modern electronics. In this case the oxide materials have unusual properties that arise from strong interactions between electrons. The interfaces so created are rich with the potential for new phenomena and new materials properties that may have technological impact. The PI will use sophisticated theoretical tools to understand recent experiments and predict new phenomena.

The fundamental tools of advanced quantum mechanics are needed to understand experiments on these systems and to illuminate new possibilities with predictions that motivate further experiment. This work contributes to the foundations of future electronic and information technologies. This award helps provide a quality educational experience for students at the graduate and postdoctoral level.